Mathematical Sciences: Geometry of the Fundamental Group

Robert Brooks will investigate connections between the geometry of a surface and the eigenvalues of the Laplacian. Work on these problems was popularized some years ago by questions such as "Can you hear the shape of a drum?". If you have perfect pitch then you can in theory detect the harmonics of the drum, that is the eigenvalues of the Laplacian. So the question is how much geometry of a surface can be detected from knowledge of these eigenvalues. Brooks' work will focus on the study of the small eigenvalues of hyperbolic manifolds and isospectral problems on compact manifolds. There are already estimates for the low eigenvalues of compact manifolds. Brooks will work to extend these to the finite volume case. This is a non-trivial extension but certainly a natural one since a key ingredient of earlier estimates is the the notion of injectivity radius which is zero for non-compact finite volume manifolds. His work on isospectral problems is concerned with a study of the topology of sets of isospectral metrics in a given conformal class. The intention here is to apply the solution of the Yamabe problem to the geometry of three dimensional manifolds.